Marine Geochemistry of Reactive Radiouclides

This proposal requests renewed funding to complete studies of the behavior of natural decay-series radionuclides and their applications to problems of chemical scavenging and particle dynamics in the oceanic water column. Tasks that will be carried out during the one-year grant period are: 1) completion of a one-year record of dissolved and particu- late radionuclide distributions at a station in the Sargasso Sea off Bermuda; 2) in the North Pacific; and 3) interpreta- tion and publication of an accumulated set of data on radio- nuclide distributions and fluxes in the oceanic water column. These studies will contribute to our understanding of how the oceans process chemical substances added to them and to a better understanding of particle fluxes and dynamics in the oceans, issues that are of broad concern to marine chemistry, biology, and geology.